Quantum Statistical Mechanics of Lattice Systems

ABSTRACT

Nachtergaele will work on a variety of problems in quantum statistical
mechanics. In a first group of problems he will study quantum spin systems
as models for magnetic materials. The main focus here is on equilibrium
and non-equilibrium properties of domain walls and other structures
such as droplets. With Messager, he proposes a new quantum solid-on-solid
model for the 111 interface in the Heisenberg XXZ ferromagnet. For this
model the stability of the interface at strictly positive temperatures will
be studied. The universality of fluctuations of interfaces will be investigated
in a class of one-dimensional models. Another goal is to prove the existence
of droplets in quantum spin models at zero temperature and to make first steps
towards the study of their dynamics. In continuum quantum statistical mechanics
Nachtergaele will work on the derivation of the Euler equations from the
Schroedinger dynamics of interacting fermions, and on a characterization of
the various types of Bose condensation. The latter is a project in
collaboration with Zagrebnov and Bru. The first is work already begun with
HT Yau.

Quantum statistical mechanics is an area of growing interest because many of
the phenomena that are being discovered and studied today in condensed matter
physics and material science are intrinsically quantum mechanical: Bose
condensation, superfluidity, superconductivity, quantum optics, quantum
computation, and many of the most interesting aspects of magnetism at the
microscopic scale. In addition to the implications in material science, this
work will provide new insights in fundamental problems of quantum statistical
mechanics and lead to analytical methods for their solution. The mathematical
models of quantum statistical mechanics, though related to problems in partial
differential equations, representation theory, spectral theory of operators,
and probability theory, pose new mathematical challenges of their own.
Many fascinating questions have so far resisted existing analytical and
numerical methods. The results of this project will contribute to our
understanding of the fundamental mathematical structures of quantum mechanical
models and, in the long run, may lead to innovations in numerical work
on quantum mechanical models, which is increasingly needed in pure and
applied science.